Study of Particle Production and Detector Development in Colliding Beam Experiments

9422771 Biswas This group of 3 faculty and a senior research staff member at the University of Notre Dame and 4 graduate students participate in experimental operations at Fermilab (FNAL) with the DO group. Their particular interests are top quark properties and processes that confront QCD predictions in antiproton-proton annihilations. They also are intensely involved in design and construction of new tracking instrumentation to be installed in the DO detector as a component of the current upgrade project. For application at future accelerators they pursue R&D to improve tracking capabilities at higher intensity, higher energy environments. ***